Cooper Union's Engineering Research Internship Program for High School Women and Minorities

Cooper Union for the Advance of Science and Art will initiate a six-week, commuter, Young Scholars project in engineering for 180 students entering the 11th and 12th grades. This summer program will emphasize the study of urban engineering problems. A creative integration of classroom demonstrations, video instruction, lectures, field trips, and team-based, "hands-on" laboratory exploration of problems with Cooper Union faculty and advanced engineering undergraduates, will challenge high ability and high potential students to maintain a competitive edge in science learning, a process sustained by after-school follow-up science enhancement activities in the academic year.